Collaborative Research: The Geometry of Duality in Mathematics and Physics

Abstract

Award: DMS-0073657
Principal Investigator: Sheldon Katz

This research project assembles a team at two campuses to work on
string theory and related geometry. The project is led by two
mathematicians and a physicist, and the award supports
postdoctoral research fellows, graduate students, and the
collaborations and communications of a broadly based research
network. The research program supported by this award
concentrates on dualities in string theory and M theory, a topic
in which a broad range of geometric and physical concepts come
together. The best known of these dualities is mirror symmetry,
which has had dramatic consequences for algebraic and symplectic
geometry, and this project intends to explore new dualities and
constraints along with mirror symmetry.

String theory is a promising candidate for a unifying theory of
the universe at its most fundamental levels. The basic idea is
simple - elementary particles should be modeled as mathematical
loops of string rather than as points - but working out the
details of this theory has involved and inspired some
sophisticated mathematical tools and ideas. Constraints and
observations from physics, sometimes posed as a claim that two
distinct geometries must generate the same physical theory, can
have large numbers of consequences for geometry since quantities
of physical interest are often expressed as the average value of
an observable quantity over space, or as a way of counting the
number of times two objects meet. The program in Algebra, Number
Theory, and Combinatorics is cofunding this award.